Laboratory Computers for the Enhancement of Introductory Astronomy for Non-Science Majors

The objective of this project is to enhance the laboratory experience in introductory astronomy for non-science majors by providing a set of new activities in each of the two courses offered based on currently available computer simulations. This project will improve the quality of undergraduate education in science by replacing relatively passive learning techniques with more active ones. Students will be involved in a laboratory environment which is more dynamic, less intimidating, and which allows the individual exploration which can capture the imagination and lead to the excitement of scientific discovery. They will take from these courses a greater understanding of science and a greater appreciation of its importance in their lives.